Integratd PC-VAX Local Area Network for Innovative Native American Coursework at Navajo Community College, Shiprock, NM

This project provides an integrated PC-VAX environment which will be used: 1) to implement an innovative Systems Analysis and Design course; 2) to make innovations in teaching Comparative Programming Languages; 3) to enhance the computer lab experience available to all the other computer science courses; and 4) to update and expand access to computing for improvement of the other science and math courses. The equipment consists of a VAX 3300, ten IBM-AT compatible microcomputers, four MAC SE computers, assorted network hardware, and software for networking and for programming. This configuration prepares students for the kind of computing environments found among employers who are using distributed processing systems with centralized data bases. In addition, the access to computing facilities will be vastly improved for all Navajo students attending this Tribal College on the Navajo Reservation.